Marine Sulfur Chemistry Studies in Support of MAGE/ASTEX

A set of seven proposals and two supplement requests was submitted for participation in an international marine atmospheric chemistry experiment. The Atlantic Stratocumulus Transition in the eastern North Atlantic during June 1992, is a multinational effort designed to improve our capability for studying cloud-chemistry interactions and the air/sea fluxes that affect them. The specific goals of the MAGE atmospheric chemistry experiment in ASTEX include: 1) develop and test a Lagrangian strategy for studying chemical and meteorological evolution in a tagged airmass, using ships, balloons, and aircraft; 2) develop and test new techniques for estimating trace-gas and aerosol fluxes across the air/sea interface by comparison with traditional approaches; 3) evaluate the impact of marine and continental aerosols and the formation and dissipation of stratocumulus clouds; 4) compare the impacts of natural and anthropogenic sulfur, halogens, and hydrocarbons on marine aerosol chemistry; and 5) use a multinational, multi-agency field experiment as a means for addressing tropospheric chemistry issues. In this MAGE proposal, the PIs plan to conduct measurements of SO2 and DMS and measurements of DMS fluxes from the ocean surface to the atmosphere, and to investigate the sources of cloud condensation nuclei in the cloud-topped marine boundary layer and cloud condensation nucleus production associated with marine clouds. The proposed measurements will be obtained from the University of Washington Convair C-131 research aircraft, and the proposed studies will be closely coordinated with simultaneous studies (involving shipboard, ground-based, and airborne measurements) of ocean-atmosphere interactions to be carried out as part of the multi-agency ASTEX program.